Models Relating Population Dynamics to Individual Physiology and Behavior

9319301 Nisbet Individual-based models are becoming widely used tools in population biology. These models use mathematical descriptions of the physiology and behavior of individuals to predict properties of populations. The PIs view individual-based models, not as an end in themselves, but as part of a process that can allow them to develop testable theory. They aim to identify those components of individual physiology that are key to predicting population dynamics.%%% The system for which these questions will be explored is the zooplankter Daphnia and its algal food supply. This system is appropriate for many reasons. Daphnia is an important genus in many natural lakes and ponds and previous studies have identified common dynamic patterns across many populations; thus any understanding gained from the population models is likely to be ecologically important. The physiology of the more common Daphnia species is well documented, in part because of their common use in toxicological studies, and the PIs have a major on-going program of research on the energetics of individual Daphnia. Daphnia populations in large stock tanks have been studied by one of the PIs and by one of our collaborators, Dr. E. McCauley at the University of Calgary. Thus the chosen system offers the possibility of studying the individual-to-population link in systems of increasing complexity.%%% The "deliverables" from the project will be of three kinds: (1) increased insight into the population dynamics of the chosen system, (2) sharper understanding of the processes of formulating, testing and simplifying individual-based models, and (3) new general theory.***